On the Approximation of Linear Operators with Applications

Abstract of project DMS-9972591:
On the approximation of linear operators with applications
by A.C. Antoulas, Rice University
-----------------------------------------------------------------------

The goal of this project is to investigate problems of approximation of
linear operators. The approximation method considered is based on the
singular value decomposition of the operator in question. More precisely,
we propose to study the existence of a unifying framework for the optimal
and sub-optimal approximation of (i) unstructured operators in finite
dimensions, and (ii) structured (Hankel) operators in infinite
dimensions. It is expected that this study will shed light on a large
class of singular-value-decomposition based approximation problems.

In order to predict the behavior of dynamical systems such as, a
compact disc (CD) player, a chemical reaction, or a multi-story building,
and appropriately modify (control) this behavior according to given
specifications, a mathematical model is needed. Often, (detailed) models
for these dynamical systems can be obtained using so-called finite-element
methods. The resulting complexity of such models is very high. However,
for both simulation and control purposes low-complexity models are needed,
an important requirement being that these simplified models retain key
features of the original high-complexity systems. The purpose of this
project is to study approximation methods which yield low-complexity
models with (theoretically) guaranteed properties. This is a necessary
step towards addressing, in a second phase, the problem of control of
such dynamical systems. It is expected that this project, besides its
significance for mathematics, will have an impact on application problems
arising in several engineering disciplines, and on the theorerical
foundations of high performance computing.

Sub-project on internet based education
---------------------------------------

The advent of the internet is radically changing the way teaching is
done at universities. An important new concept in this regard is that
of "Asynchronous Learning", where students learn anytime, anywhere,
and at their own pace, using the internet. A key ingredient in this
mode of learing is access to online exercises, with the capability of
instantaneous grading and feedback both for the student and for the
instructor. In traditional courses, the instructor gets feedback on
how well students have understood a certain concept at a later time,
when instruction has moved on to a new topic, and re-elaboration
becomes cumbersome. This issue can be addressed by making available
online excercises and tests which are graded instantaneously. Careful
selection of the exercises is required however, so as to help the
beginner and challenge the advanced learner. We propose to study the
issue of "automatic problem generation and grading" for a course in
the broad area of linear algebra and dynamical systems. We will start
by reviewing and evaluating several existing methods for computer-based
generation and grading of assignemnts, for instance: (i) the "Mallard"
instructional environment developed at the University of Illinois,
(ii) the "Autodidact" instructional environment developed at the
University of Grenoble; the former is a general platform which can in
principle be adapted to handle many different courses, while the latter
is geared towards courses in dynamical systems and control. It will
subsequently be decided whether to adopt one of these existing
platforms and/or the degree of modification required to address the
needs of the chosen course.